Rapid Synthesis of Phosphonate and Phosphonamidate Peptide Analogs from Reduced Phosphorus Intermediates and Determination of their Enzymatic Inhibitory Activity

The focus of this research is the development of new approaches to the synthesis of phosphonopeptides that can be adapted to solid state synthesis for application to combinatorial chemistry. The key building blocks will be protected phosphorus(III) amino acids. Specific studies will include the synthesis of model phosphonate and phosphonamidate dipeptides in solution using dichlorotriphenylphosphorane for activiating the phosphorus(III) amino acids; the evaluation of benzyl protection of phosphonates and phosphonamides; applications of these methods to solid-phase synthesis of phosphonopeptides and their thio derivatives; enantioselective synthesis of H-phosphinate amino acids; ald measurement of enzyme inhibition for these newly synthesized compounds. With this award, the Synthetic Organic Program and the Office of Multidisciplinary Activities are supporting the research of Dr. Robert P. Hammer of the Department of Chemistry at Louisiana State University. Professor Hammer will focus his work on the development of new, general and high-yielding methods for the preparation of phosphono-substituted peptides that can be applied to solid state procedures for the production of combinatorial libraries. This approach will provide thousands of compounds simultaneously which can be screened for a variety of biological activities, such as protease inhibition.